Static and Dynamic Properties of Polymeric Systems with Strongly Interacting Groups

9409787 Rubinstein This is an United States-Russia Joint Cooperative Research grant funded jointly by the Division of Materials Research and the Division of International Programs. Professor Michael Rubinstein of the University of Rochester and Eastman Kodak Company will collaborate with Professor Alexander Semenov of Moscow State University. Theoretical research will be conducted on the staic and dynamic properties of heteropolymers with strongly interacting groups including block copolymers in selective solvents, ionomers and associating polymers. These systems have a number of unique structural, mechanical and rheological properties. Each research group has complementary skills to study these materials. %%% ***